Spring School/Workshop on Supernovae and Stellar Evolution, March 8-17, 1989, Bombay, India, Award in Indian and U.S. Currencies

Description: This project supports participation by seven U.S. scientists in a "Spring School and Workshop on Supernovae and Stellar Evolution" to be held at the Tata Institute of Fundamental Research in Bombay, India, March 8-17, 1989. The Indian organizers are Drs. Alak Ray and T. Velusamy of TIFR. Topics to be discussed include: stellar evolution of single stars, stellar evolution in close binaries; gravitational collapse; nuclear physics in the collapse and bounce phases, equation of state of supernovae matter; neutrino diffusion and interactions; shock formation and propagation; neutron star formation and early cooling; supernovae light curves and spectra; products of supernovae; and statistics of supernovae, pulsar and supernova remnants. It is expected that 35-40 relatively young scientists from India and other countries will participat by invitations, in addition to the lectures from India and the U.S. The objectives of the workshop are: 1) To discuss advances in the field especially since the occurance of the Supernovae of 1987 (SN1987A); and 2) to identify areas for possible joint research. Scope: This workshop will bring scientists from India and the U.S. together to discuss a topic in which activities have been strong in the two countries. The recently observed phenomena SN1987A has stimulated new thinking and new approaches to theories and data interpretation regarding stellar evolution. There is already a level of Indo-U.S. cooperation in research in the field, and this workshop is likely to enhance it as well as provide for exchage of information among the participants.